Seventh International Conference on Fundamentals of Adsorption

International Travel Award: The 7th Internatonal Conference on Fundmentals of Adsorption

This award supports partially the participation by 30 American researchers in the 7th International Conference on Fundamentals of Adsorption (FOA7) to be held in Nagasaki, Japan, 20-25 May 2001. This conference provides a unique forum for dialog among international researchers in the field. It will bring together about 300 researchers from 35 countries. Both academic and industrial researchers will participate in sessions on adsorption relating to gas separation processes, gas storage, energy-efficient refrigeration, and environmental protection.

Adsorption is a key phenomenon in many separation and catalytic processes as well as in nature, and the current research activity is dynamic, stimulated by new developments in materials synthesis, molecular modeling, and specific applications. Much of the important new work is being done abroad, so it is vital that U.S. researchers maintain contact and collaboration with their foreign counterparts. This conference provides an opportunity to promote such contact.